Mathematical Sciences: Regularity and Oscillations in Mathematical Theory of an Ideal Incompressible Fluid

DMS-9531769 Vishik The PI will investigate the mathematical problems of fluid motion. Methods of harmonic analysis and partial differential equations will be used to study the evolution of singularities and loss of smoothness for the incompressible flows of an ideal fluid. The typical vorticity field admissible for the analysis is not essentially bounded although the set where it blows up is in some sense small. The proposed study will provide precise information about the separation of Lagrangian trajectories of liquid particles and generation of small scale structures by the flow. The PI in collaboration with S.Friedlander will continue to investigate nonlinear instability and spectrum of small oscillations of an ideal fluid about a given equilibrium using methods of dynamical systems and spectral theory. %%% Mathematical theory of fluid motion is aimed at understanding phenomena in fluids, such as turbulence, from the basic equations. This subject is fundamental for applications in meteorology, geophysics, astrophysics, oceanology, and aerodynamics.In the past, the partial differential equations of fluid motion have been a source of several important concepts in mathematics. The proposed research will address two problems. First, one particular scenario of the evolution of fluid flow when mild singularities are present in the velocity field, will be investigated. Such flows of an ideal fluid may approximate viscous flows at very high Reynolds number. The second line of research is hydrodynamic stability theory.Its goal is to understand the general conditions for the parameters and geometry of the flow under which fluid loses stability and to describe frequencies of small oscillations when the flow is not too far from the steady state. ***